Adapting Beyond The Mechanical Universe: Materials for HighSchool Physics

The Mechanical Universe and Beyond The Mechanical Universe is a one- year college-level physics course for national television currently under development at Caltech and supported by a $5.8 million grant from the Annenberg/CPB Project. This project has three objectives: (1) to produce videotape adaptations and print materials based on Beyond The Mechanical Universe for use in high schools, (2) to conduct regional workshops on the use of the materials, and (3) to plan dissemination procedures for promoting the increased effective use of the materials by all teachers. The last objective will utilize results from two years of field testing and from related special projects. The academic and television staff of the Caltech project will work closely with a group of outstanding high school teachers, the Materials Development Council, to continue the development of the materials. In addition, Council members will conduct workshops on the use of materials for teachers residing in their local areas. The videotapes and supportive written materials will be field tested by the Council members and by the teachers participating in the workshops. The results of the evaluation will be utilized to modify the materials. The project has undergone thorough evaluations, and staff have made effective use of the results in revising the materials. In addition to evaluation done to yield information for revisions, data was also gathered from teacher and student participants as to their reactions to the materials. "The strong positive nature of the responses and the comments received encourages the evaluators and the staff to believe that what has been begun and what will continue to be accomplished has the potential to make a major contribution to the strengthening of physics instruction in the nation's public schools". The project director's training and experiences, as well as his track record amply qualify him to undertake project direction responsibilities.